Research Experiences for Undergraduates in Chemistry at Oakland University

Professor Kenneth Harmon and other members of the Chemistry Department of Oakland University are being supported to conduct a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1990-92, ten (10) undergraduate students will spend ten (10) weeks each summer and additional time during each academic year actively engaged in a variety of research projects. Projects involve the application of chemistry to problems of biological interest, and include hydration of phosphatidylcholine analogs, ESR studies of radiation damage to DNA, and preparation and study of organometallic antiviral agents. Students will also participate in weekly seminars reviewing their work.